Integrating Experimentation and Instrumentation in Upper-Division Physics

Physics (13)

This project revises the Physical Measurements and Instrumentation course at Kansas State University by revisiting several modern physics experiments done in two earlier advanced laboratory courses. In revisiting these experiments, students focus on designing instrumentation that automates the control, data collection and analysis in these two experiments using newly gained knowledge about electronics (utilizing Electronics Workbench) and the LabVIEW programming learned in the first seven weeks of the Physical Measurements and Instrumentation course. This capstone experience affords students the opportunity to re-learn the underlying conceptual physics of these experiments as well as apply their knowledge of electronic instrumentation and LabVIEW programming.